Distribution of Dark Matter in Disk Galaxies

Dynamical evidence shows that most of the mass in disk galaxies lies in some form of unseen matter, the nature and distribution of which is largely unkown. The dynamics of polar-ring galaxies, which have outer rings of gas, stars, and dust orbiting in a plane perpendicular to their rotating central disks, provide one of the few observational tests available to determine whether the dark matter lies in a spherical halo, a thin disk, or something in between. Work to be supported by this grant will be devoted to using these galaxies as means for examining the distribution of dark matter in galaxies. The Principal Investigator is a highly regarded expert in this field.